ITR/SY(PHY): Decoherence and the Performance of Geometric Quantum Computers---Model Building and Analysis

The primary object of this project is the construction and analysis of mathematical models which introduce decoherence into the dynamics of a geometric quantum computer. A geometric quantum computer (GQC) is a particular proposal for a quantum computer which uses Berry's phase to encode the phase shift of the 2-qubit conditional-phase-shift logic-gate that generates entangled states in the GQC. The goal of this type of investigation is to examine the robustness of geometric quantum computing to errors, in particular, the manner in which decoherence will degrade and ultimately ruin the performance of a GQC.